The Exploration and Conceptualization of the Public Understanding of Scientific Research

0003029
MILLER

Jon Miller of the Northwestern University Medical School is undertaking exploratory research into issues surrounding informing the public about on-going research. The specific activities to be undertaken as part of this Small Grant for Exploratory Research include:

o examining the scope and dimensions of the issues in the context of current learning and communications research,

o re-conceptualizing the problem in programmatic and research terms, and

o developing a general research program to address these issues over the next ten years.